A Network of Workstations to Support Research in Astronomy and Astrophysics

This award provides partial funding for a network of workstations that will be used to support research programs in observational and theoretical astrophysics at the University of Pittsburgh. The balance of the funding will be provided by matching funds from the University. The research program will center on Quasi- Stellar Objects (QSOs): the identification of new samples of QSOs, the understanding of the Physical mechanisms operating within QSOs that produce their enormous energy output, and the use of background QSOs to probe the sight lines through matter located at very high redshifts, reflecting the conditions in the early universe. Based around a file server and several powerful client workstations with image display capability, this system will be capable of running standard astronomical data reduction packages, thereby reducing the cost of software development. It will also provide a powerful interface to supercomputers for more general scientific computing and modelling tasks.